Optical Coherence Studies of Rare Earth Doped Glasses (Chemistry)

This research involves the use of optical coherence techniques, such as photon echo and hole-burning experiments, to study rare earth doped glasses in which a refractive index change or second harmonic generation has been optically induced. These photoinduced phenomena are being used in a number of fiber optic devices, but a detailed understanding of the underlying microscopic mechanism is lacking. The objective is to gain insight about the microscopic nature of these photoinduced changes. One part of the research focuses on the local structure and dynamics of the rare earth ion whereas a second part deals with the dynamics of the host glass. The results of these experiments will provide insight into the microscopic changes associated with photoinduced phenomena in glasses and may lead to the development of more efficient materials and devices. The interactive activities consist of teaching an advanced undergraduate courses in Physical Chemistry, advising and mentoring of undergraduate students, organizing a seminar series, and organizing a seminar series for students and faculty in the Chemistry department.